Origin of Potassic and Ultrapotassic Basalts of NE China

One of the largest areas of Quaternary potassic volcanics in the world, in NE Asia, is also one of the least well-known. The most potassic, most accessible, and the only sites of historic eruptions of these rocks are in northwestern Heilogjiang and adjacent Inner Mongolia, China. The PI has begun a major petrologic, geochemical and isotopic study of these rocks. A Chinese graduate student is currently working on them at Santa Cruz. This award will provide temporary support for the student until longer-term funding for the project as a whole can be obtained. During this time he will obtain major and trace elements by XRF and complete petrographic characteriaation of samples collected already; complete U-Th disequilibria studies of representative samples; and obtain rare earth analyses of a subset of samples.